Symposium on Self Assembled Photonic Band Gap Materials; ACS Spring Meeting; Orlando, FL; April 7-12, 2002

This two-day symposium on self-assembled photonic band gap materials will take place at the Spring 2002 American Chemical Society Meeting in Orlando, FL. The symposium will address a diverse array of subjects ranging from organic synthesis to optical characterization. In order to maximize the benefit of this symposium, it will begin with three tutorial lectures that will head from conventional optics to a description of photonic materials. The tutorials will give the participants the necessary background. The organizers have invited a diverse array of speakers from industry and academia, including a number of Assistant Professors. They will also encourage graduate students to present their latest results at the symposium. The funds obtained from the National Science Foundation will be used primarily to support the participation of Assistant Professors and graduate students.